Field Experiences in the Marine Sciences: Coastal Oceanography, Geology and Marine Biology of Southern California/Baja California

This three-week course offers 40 instructors of undergraduate marine sciences and related physical and biological science disciplines first hand exposure to California coastal marine environmenta. Participants will collect and analyze oceanographic data aboard the R/V Gordon Sproul, conduct field exercises in modern day mid-lattitude marine habitats and an active continental margin tectonic terrain; develop laboratory exercises using satellite imaging; interact with local experts in marine biology, fisheries management, geology, and physical oceanography; and participate in a choice of special topic mini-workshops.